Workshop on Spectral Invariants on Non-Compact and Singular Spaces

This summer, during July 23-27, 2012, there will be a workshop
entitled ``Spectral invariants on non-compact and singular spaces"
held at the Centre de Recherches Mathematiques (CRM) in Montreal,
Canada. Important examples of spectral invariants are given by the
index of an elliptic operator, the determinant of the Laplacian on a
Riemannian manifold, the eta invariant (or spectral asymmetry) of a
self-adjoint elliptic operator, and the analytic torsion. On
non-compact or singular manifolds, the very definition of spectral
invariants is much more delicate. The workshop will highlight recent
developments and new research directions in spectral geometry in
singular contexts (e.g., spectral invariants in the presence of cusps
and edges, scattering theory for asymptotically regular non-compact
geometries, applications to moduli spaces and geometric structures,
etc.).

This award provides funding to defray the expenses of U.S.
participants at this conference. The expected participants represent a
balanced mixture of senior and junior researchers and include some of
the most renowned experts on spectral invariants. This is a very
active field with many recent developments, and this workshop will
provide an important forum to advertise the state-of-the-art and an
excellent opportunity for collaboration. The webpage for the
conference can be found at:
http://www.crm.umontreal.ca/act/theme/theme_2012_2_en/invariants12_e.php